NSF Young Investigator: Studies in Image Synthesis

Photorealistic image synthesis is an important problem for such diverse fields as architecture, lighting and industrial design, remote sensing from satellites and robots, scientific visualization, simulation systems, and entertainment and advertising. It also requires enormous computation. Carefully chosen approximations are therefore essential for making the computation efficient. Unfortunately, few such approximations admit good error metrics, which makes controlling image fidelity difficult at best. In many applications this accuracy is vital. This research develops a controlled-precision rendering approach for general systems of light transport both to provide reliable bounds on accuracy, and also to allow an algorithm to concentrate its effort where the error reduction is largest. In addition to photorealistic image synthesis, research begins in non-photorealistic rendering, an area with great commercial potential that has received relatively little attention to date. Mechanisms are developed to support the generation of effective illustrations from three-dimensional continuous-tone images. Specific research goals include creating a taxonomy of traditional illustration techniques; developing new modeling paradigms, imaging models, and user-interaction methods for specifying and computing illustrations; establishing methods for simplifying geometric models from models with a higher level of detail; and developing techniques for simulating traditional artist tools, such as pencil, chalk, air brush, and watercolor.